Advancing Content Through Interactive Virtual Environments (ACTIVE)

The proposal intends to develop software that, when combined with the OMNI device,
produces a virtual touch sensation that allows the blind to "touch" surfaces such as
Mars, Earth's Moon, etc. The experience is multimedia as users can get sight, sound,
and touch at the same time.
The proposal does a solid job of describing a well-constructed and well-designed plan.
The collaborative group works to bring together a strong body of STEM material, a
highly skilled project team, and a diverse audience to assess the material. The team
brought together to implement the proposal is a good one and includes the Institute for
Scientific Research, NASA IV and V Independent Verification and Validation, Facility
Educator Resource Center, Alderson Broadus College, Davis & Elkins College, and the
West Virginia Schools for the Deaf and Blind. Although NASA is a project partner, the
reviewers encourage the project proposer to continue building direct NASA funding. For
example, a NASA space grant may be a good dissemination vehicle in the future.
Reviewers were impressed with the various project elements: the mobile unit, pre- and
post- standards based lessons, hypothesis testing with immediate feedback. The
evaluation and dissemination plans provide for effective and immediate impact on a
statewide and national level. The project provides for broader impact as the multi-media
tools will be of assistance to other groups of students with disabilities as well.